Compuer Control of Experimental and Cognitive Laboratories

The Department of Psychology at UTA requests support to initiate a laboratory course in Artificial Intelligence and to improve laboratories in Experimental Psychology, Cognitive Processes, and Sensory and Perceptual Processes. Much modern psychological research uses computers for measurement and control of response and event times, and to generate stimulus displays. We currently use Commodore C-64 computers in existing laboratory courses for these functions. The C-64s were once cost-effective but are now obsolete, with modest memory and limited graphics. We propose to replace them with IBM- compatible computers with VGA monitors and the capacity to store programs, graphic and other displays, data, and system and language files for the various courses. We propose to purchase Micro Experimental Laboratory software and pcSTEREOSCOPE hard and software to perform experiments, and to purchase LISP for the new Al laboratory course. This will improve laboratory instruction by at least an order of magnitude, enabling us to perform many experiments that cannot currently be conducted. It will increase the diversity of laboratory courses and enable students to conduct more significant and creative final projects in each course. At non- classroom times the equipment will be used for independent study and honors projects, providing enhanced research opportunities to our most able students.